Industry-University Cooperative Research: Flow of Polymers in Complex Geometries

Various important industrial processes involve flow of polymers in regions of spatially varying dimensions. In such flows the fluid elements experience a deformation history with large and time- dependent extensional and shear components. Non-Newtonian effects are important and need to be understood. Local information on stress and velocity cannot be obtained directly in most applications, at least by current methods, nor can the behavior be predicted with confidence because available constitutive equations are untested for relevant flow histories. Work under this grant will use a wavy wall channel and state-of-the-art noninvasive measurement techniques to explore such flows. Results are expected to form a necessary base for quantitative understanding of polymer flows in these important regions. Among the most common examples of flows of this type are the flow of polymer solutions in porous media, encountered in enhanced oil recovery, and the flow of the polymer modified oils in lubrication. However, a technology of growing importance, the formation of composite materials by the injection of polymer melts or of reactive polymeric liquids into open-structure matrices, provides an additional strong incentive for this research.